Precision Tests of the Standard Model and Beyond

This proposal centers on determining precision tests of the Standard Model of particle physics and new physics beyond the Standard Model at present and future collider facilities. The PI proposes to do a full one-loop computation of neutrino-nucleon scattering. This is the essential missing ingredient that is needed to understand whether the recently observed NuTeV anomaly is in fact a deviation from the Standard Model or just a consequence of higher order radiative effects The PI proposes a variety of calculations covering radiative corrections to electroweak observables (mainly WW production), radiative corrections to both Higgs boson production and decay processes, top quark production, neutrino deep inelastic scattering and precision measurements of SUSY processes at a future linear collider.